PYIA: Optimization and Control of Discrete Event Systems

The main topic of this research is optimization and control of discrete event stochastic systems. On the optimization side, the focus is on developing stochastic approximation and stochastic optimization methods. Since the major difficulty in optimizing a discrete event system often has to do with its combinatorial nature, tools in combinatorial optimization (e.g. matroid and polymatroid theories) will be incorporated into the stochastic optimization of such systems. On the control side, the focus will be on the intensity control of point processes (which drive the dynamics of a queuing network, for instance). Stochastic non-linear filtering problems will also be addressed in the setting of point process driven systems. Applications of the theory and methodologies developed from this research will be in two areas: multi- media communication networks and computer integrated manufacturing systems. This is a Presidential Young Investigator Award to carry out research into optimization and control of discrete event stochastic systems. These systems models arise in analyzing and designing many important engineering precesses such as multi-media communication networks and computer integrated manufacturing plants. It is expected that the results of this research will yield better understanding of these models and better means of controlling such systems.